Collaborative Research: Cyber-enabled Learning: Digital Natives in Integrated Scientific Inquiry Classrooms.

There is an increasing gap between the assumptions governing the use of cyber-enabled resources in schools and the realities of their use by students in out of school settings. The potential of information and communications technologies (ICT) as cognitive tools for engaging students in scientific inquiry and enhancing teacher learning is explored. A comprehensive professional development program of over 240 hours, along with follow-up is used to determine how teachers can be supported to use ICT tools effectively in classroom instruction to create meaningful learning experiences for students, reducing the gap between formal and informal learning and improve student learning outcomes. In the first year, six teachers from school districts - two in Utah and one in New York - are educated to become teacher leaders and advisors. Then three cohorts of 30 teachers matched by characteristics are provided professional development and field test units over two years in a delayed-treatment design. Biologists from Utah State University and New York College of Technology develop four modules that meet the science standards for both states - the first being changes in the environment. Teachers are guided to develop additional modules. The key technological resource to be used in the project is the Opensimulator 3D application Server (OpenSim), an open source, modular, expandable platform used to create simulated 3D spaces with customizable terrain, weather and physics.

The research methodology includes the use of the classroom observations using RTOP and Technology Use in Science Instruction (TUSI), selected interviews of teachers and students and validated assessments of student learning. Evaluation, by an external evaluator, assesses the quality of the professional development and the quality of the cyber-enabled learning resources, as well as reviews the research design and implementation. An Advisory Board will monitor the project.

The project is to determine the professional development needed to make teachers comfortable teaching with multi-user simulations and communications that students use everyday. The enactment with OpenSim also provides an opportunity to demonstrate the level of planning and preparation that go into fashioning modules with all selected cyber-enabled cognitive tools framed by constructivism, such as GoogleEarth and Biologica.